Leading Edge Electronic Democracy: A Focus Group; May 6-7-2004; Oxford, England

This workshop will explore initial experiences in e-democracy in the US and in Europe. As well as experts in academic research aspects, attendees will include representativess of government agencies who have experimented with e-democracy on both sides of the Atlantic. Using a focus group methodology, the group will explore such questions as:

o What created the demand for the e-democracy projects which were undertaken?
o What were the principal barriers and facilitators encountered?
o What strategies were employed to overcome barriers?
o What changes in democratic practices, processes or structures have occured as a result of the projects?

A variety of new research questions will also be identified, and the workshop results will be disseminated on the Web and through scholarly journals.